CPS: Medium: Collaborative Research: The Foundations of Implicit and Explicit Communication in Cyberphysical Systems

The objective of this research is to develop the theoretical
foundations for understanding implicit and explicit
communication within cyber-physical systems. The approach is
two-fold: (a) developing new information-theoretic tools to
reveal the essential nature of implicit communication in a
manner analogous to (and compatible with) classical network
information theory; (b) viewing the wireless ecosystem itself
as a cyber-physical system in which spectrum is the physical
substrate that is manipulated by heterogeneous interacting
cyber-systems that must be certified to meet safety and
performance objectives.

The intellectual merit of this project comes from the
transformative technical approaches being developed. The key to
understanding implicit communication is a conceptual
breakthrough in attacking the unsolved 40-year-old Witsenhausen
counterexample by using an approximate-optimality paradigm
combined with new ideas from sphere-packing and cognitive radio
channels. These techniques open up radically new mathematical
avenues to attack distributed-control problems that have long
been considered fundamentally intractable. They guide the
development of nonlinear control strategies that are provably
orders-of-magnitude better than the best linear strategies. The
keys to understanding explicit communication in cyber-physical
systems are new approaches to active learning, detection, and
estimation in distributed environments that combine worst-case
and probabilistic elements.

Beyond the many diverse applications (the Internet, the smart
grid, intelligent transportation, etc.) of heterogeneous
cyber-physical systems themselves, this research reaches out to
wireless policy: allowing the principled formulation of
government regulations for next-generation networks. Graduate
students (including female ones) and postdoctoral scholars will
be trained and research results incorporated into both the
undergraduate and graduate curricula.